A Workshop on Research Needs in the Interaction of Friction and System Dynamics

9315681 Akay A workshop will be held to assess the research needs in the interdisciplinary area of friction interactions with the dynamic behavior of systems. The generic problems in the behavior of dynamic systems caused by friction forces, such as noise, chatter and vibrations, will be identified and research venues to affect their eventual control will be proposed. In addition, assessments will be made of the potential for greater use of vibrational inputs to control and minimize friction. A survey of industrial needs will be undertaken prior to the workshop. *** in the interdisciplinary area of friction interactions with ! ! F D D < Times New Roman Symbol & Arial NewCenturySchlbk B B B B D " h 1 E 1 E / Martha P. King Martha P. King